Upgrade of SOEST MG&G Computing Facility

This award will provide for the acquisition of a multi-processor Linex cluster wtih seismic processing software and allow the upgrade of existing workstations. The group using the system has an increase in computational needs due to several large data sets recently collected, in addition to new faculty members.